RUI: COLLABORATIVE RESEARCH: The Neoproterozoic and Cambrian of the Tethyan Himalaya: A Test of Models of Core Gondwanan Construction

EAR 9980376 Myrow
EAR 9980426 Hughes

Collaborative Research: THE NEOPROTEROZOIC AND CAMBRIAN OF THE TETHYAN HIMALAYA: A TEST OF MODELS OF CORE GONDWANAN CONSTRUCTION

The nature and timing of the assembly of core Gondwanaland remains a matter
of vigorous debate. The traditional view is that East Gondwana, consisting
of India, Australia and Antarctica collided with the combined African
cratons (Kalahari and Congo) as one block sometime during the late
Neoproterozoic. An alternative model suggests that the accretion of East
Gondwana to the African craton was a two part process. In this model, India
broke off from Australia and Antarctic, swept across the Mozambique Ocean,
and collided with the African craton at approximately 680 Ma. This was
purportedly followed sometime later by collision of Australia/Antarctica
around 550 to 530 Ma. Our study of the Tethyan Himalaya will test tectonic
models of the assembly of core Gondwanaland using a combined stratigraphic,
macrofaunal and sedimentological approach. Of primary importance is the
stratigraphic signature of sediment input from adjacent orogenic belts. A
record of major increases of siliclastic sediment, with abrupt changes in
paleocurrents would accompany orogenesis. A key component of the proposed
models is that they have predictable patterns of detrital zircon ages. A
Late Cambrian-Early Ordovician tectonic event is recorded in the Tethyan
Himalaya and in other places in East Gondwanaland. The nature of this event
is unclear, but two possibilities include: (1) it represents a somewhat
delayed expression of the Australia/Antarctica collision in the two-stage
model, or (2) it represents the docking of an outboard microcontinent
(e.g., the Lhasa Block of Tibet) subsequent to the formation of core
Gondwanaland. The biostratigraphic patterns of trilobites provide the basis
of testable predictions of these hypotheses. In the first case, we expect
to find a stratigraphic increase in similarity in faunas between India and
the rest of East Antarctica throughout the Cambrian. If faunal similarity
with the rest of East Gondwana was constant throughout the
trilobite-bearing Cambrian, we may infer that Gondwanan construction was
complete prior to 520 Ma. In addition, if the ~500 Ma tectonic event in the
Tethyan Himalaya records microcontinental collision, then the
identification of the outboard terrane may be approached through
biogeographic patterns established in this study. Myrow's RUI proposal will
involve undergraduates at Colorado College as junior collaborators in all
components of the research. This will provide a much-needed opportunity for
students to experience scientific research in diverse geographical and
cultural environments. A key aspect of this proposal is the close research
collaboration with Indian and Chinese scientists.